Thirteenth International Workshop on Low Temperature Detectors (LTD-13); Menlo Park, CA; July 2009

The Thirteenth International Workshop on Low Temperature Detectors (LTD-13) will be held at Stanford University, SLAC National Accelerator Laboratory from July 20-24, 2009. This award will support the broad participation by young scientists at this conference. This workshop occurs every two years. These meetings have about 300 international participants and cover a broad range of innovative detectors and sensors based on low temperature properties of matter. These detector advances have proven key to enabling a number of astrophysics, biophysics and micro-analysis applications. The latest advances are presented at these conferences.

For the Broader Impacts, the Workshop will address the development of cryogenic radiation and particle detectors and the application of these new technologies in the many exciting fields ranging from particle physics and astrophysics to biology and medicine. The Proceedings of this conference will be published so that many others can take advantage of the talks. For the first time in the LTD Workshop history, the proceedings will be given to participants on a CD.